AF: Small: Algorithmic Problems in Applied Computational Geometry

Computer technologies play an important role in modern medicine and life
sciences, especially in diagnostic imaging, human genome study, treatment
optimization, and medical data management. Many computational problems
arising in the field of biomedicine call for efficient and good quality
algorithmic solutions. This project aims to develop new geometric
computing and algorithmic techniques for solving computational problems
in biomedical and engineering applications.

This research investigates a number of geometric optimization problems
that are theoretically challenging and practically relevant. The target
problems belong to fundamental topics of computational geometry, such as
geometric partition, covering, shaping, approximation, motion planning,
and clustering; they also arise in important applied areas such as
radiation cancer treatment, medical imaging, biology, computer-aided
manufacturing, and data mining. Some of the algorithms and software
developed during the preliminary studies of this research have produced
significantly better solutions for real application problems (for example,
much improved radiation cancer therapy plans over those computed by the
current commercial radiation treatment planning systems). The research
will draw diverse techniques from other theoretical areas such as graph
algorithms, combinatorial optimization, discrete mathematics, and
operations research. It will also provide a rich source of interesting
new problems/questions and new ideas to prod further development of
algorithmic techniques in computational geometry and other theoretical
areas. This project is expected to generate broader impacts beyond
computational geometry and even computer science. It will produce
efficient and effective algorithms and software for solving key problems
in radiation cancer therapy and surgery, medical imaging, biology, and
other applied areas. Furthermore, the newly developed algorithms and
software will be incorporated into practical applications such as
clinical radiation cancer treatment systems. Hence, this research will
help unite and integrate the power of computational geometry, computer
algorithms, and modern biomedicine for diagnostic imaging, radiation
cancer treatment, and other applications, and improve the quality of
life for the patients.